Quasi-Isometric Rigidity, Convexity Properties and Thompson's Groups

DMS-0305441
Jennifer Taback

The principal investigator proposes to study a variety of problems
from both a combinatorial and a geometric viewpoint. Many of
these problems concern Thompson's group, a fascinating group which
appears in varied branches of mathematics, from logic to algebra
to homotopy theory and group theory. The principal investigator
plans to explore questions ranging from amenability to
quasi-isometries of this group. Additionally, the investigator
proposes to extend prior work on quasi-isometries of lattices,
working with colleagues to finish a quasi-isometry classification
of s-arithmetic lattices. This would complete a project worked on
by many geometric group theorists that has led to the introduction
of interesting new techniques. Finally, the principal investigator
plans several projects concerning convexity properties of groups.
While almost convexity is well understood, there are few examples
of groups which are not almost convex but satisfy weaker convexity
conditions. She also seeks to expand the list of classes of
groups which are known to be almost convex.

The principal investigator proposes several projects in the area
of group theory. A group is a mathematical structure, often
introduced in the context of symmetries of a particular object.
Certain properties of a set of symmetries can be extrapolated to
describe abstract mathematical sets. In her research, the
investigator studies groups as geometric objects, using the
geometry to give greater insight into abstract properties. The
investigator studies closely one particular group, named
Thompson's group after the researcher who first defined it.
Thompson's group can be understood geometrically using pairs of
binary trees, an approach which relates this group to questions in
theoretical computer science. Thus it provides an interesting
interdisciplinary application of abstract mathematics.
Additionally, Thompson's group is a favorite example or
counter-example to many questions in mathematics. There are many
open questions about this group which interest an international
group of mathematicians. In particular, the geometry of this
group is not well understood, a question which interests the
investigator greatly. Mathematicians have a standard way of
describing a "picture" of a group, which is sometimes difficult to
construct. For certain groups, it is possible to ask a computer to
construct this picture. The principal investigator is interested
in exploring an algorithmic property of some groups, called almost
convexity, which allows computer construction of the group.